U.S.-Japan Cooperative Science: Ecophysiology of Larval-Stage Dispersal in Estuarine Fishes

9725942 Secor This award supports a three year collaborative research project between Professor David Secor of the University of Maryland and Professor Masaru Tanaka of Kyoto University in Japan. The researchers will be exploring ecophysiology of larval-stage dispersal in estuarine fishes. A critical phase in estuarine fishes is the transition between larval and juvenile stages. For Japanese sea bass, transition- phase fish move from brackish to freshwater habitats. The researchers will examine the timing of this habitat shift in relation to: (l) the physiological ability of larvae to adapt to changing salinity habitats; (2) the size and age of larvae; and (3) environmental conditions. The project will couple methodologies in otolith microanalysis and immunocytochemistry. The otolith's chemical record will serve as a chronometer on the timing of the habitat shift relative to age and size. Individual level analysis of endocrine function will indicate whether a larva is competent to change habitats. This project brings together the efforts of two laboratories that have complementary expertise, research capabilities and equipment. The collaboration will unite the U.S. researcher's expertise in otolith microanalysis with the Japanese expertise in immunocytochemistry. Research results of otolith microanalysis will establish the where's and when's of larval ingress or egress into juvenile habitats. Also the endocrine status and larval growth rate will provide information on how the habitat shift is successfully accomplished. Through the exchange of ideas and technology, this project will broaden our base of basic knowledge and promote international understanding and cooperation. ***